Acquisition of a 600 MHz NMR Spectrometer for Shared Use

With support from the Major Research Instrumentation (MRI) Acquisition Program, the Department of Chemistry and Biochemistry at the University of Maryland College Park (UMD) will acquire a 600 MHz spectrometer. The spectrometer will improve the diverse research capabilities at UMD in chemistry, biochemistry and materials science, as well as enhance research at Howard University and the Catholic University of America. Research that will be impacted include the design of catalysts for Ziegler-Natta polymerization, basic understanding of protein folding, synthesis of nanoparticles for use in hydrogen fuel cells, and the design of synthetic ion channels.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most broadly used tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances and to provide information on the arrangement and connectivity of atoms in molecules. This award will provide these essential analytical capabilities to chemists, biochemists, and chemical engineers at the three institutions sharing the use of the nmr facility at UMD. To maximize the training component of the award, a course in practical nmr spectroscopy for senior and first-year graduate students will be established. The course will be co-taught by participating faculty from the three institutions.